Architecture Synthesis and Retargetability for High- Performance Application-Specific Processors

A new instruction-level parallel (ILP) architecture called XIMD is proposed. This architecture model can provide better performance and efficiency for a broader range of applications than traditional scalar uniprocessors including pipelined RISC. The XIMD architecture employs multiple functional units and can support the concurrent execution of a variable number of instruction streams. The regularity and simplicity of its hardware implementation makes it highly scalable and retargetable to accommodate diverse application code characteristics. Currently, the XIMD architecture model is being developed and evaluated. A functional level simulator for a baseline XIMD architecture is being implemented. Using this simulator the performance and efficiency of the XIMD can be quantitatively analyzed. A practical prototype XIMD machine is also being designed. Implementation feasibility and achievable performance using currently available parts are being assessed. Compilation methodology and techniques to support the XIMD architecture model are also being investigated.